PASCOS99 - 7th International Symposium on Particles, Strings and Cosmology; Granlibakken, Tahoe City, CA

The 7th International Symposium on Particles, Strings, and Cosmology (PASCOS 99) will be held in Granlibakken, Tahoe City, California, December 10-16, 1999. This symposium will bring together experimentalists and theorists in elementary particle physics, astrophysics, and cosmology to engage in the lively exchange of ideas which is so important to progress in the field. The opportunity for researchers in astrophysics and cosmology to learn from scientists in particle physics, and vice versa, will be particularly valuable.